Transfer of Reducing Equivalents from Host Cytoplasm to Bacteroids in Legume Nodules

Recent theoretical arguments and experimental results suggest a role for glutamate in the function of N2-fixing bacteroids. An examination of the literature indicates that the best way to accommodate a role for glutamate is to propose that a malate- aspartate shuttle operates in legume nodules. There is a surprisingly large amount of published evidence to support this hypothesis, but it has not been thoroughly tested. These experiments will directly test the hypothesis by determining the patterns of labeling of metabolites in cytosol and bacteroids, the effect of substrates on the acetylene reduction activity and respiration rate of anaerobically isolated bacteroids, and the distribution and properties of enzymes required for the operation of the malate-aspartate shuttle. The hypothesis is attractive because it can be tested by many approaches, all of which involve straight-forward methods. If the hypothesis is correct, one of the major unresolved questions in symbiotic N2 fixation - namely, how reducing equivalents are supplied to bacteroids - would be answered. If the hypothesis is not correct, the proposed experiments will still provide important new insights regarding carbon metabolism in legume nodules. Some plants are "colonized" by bacteria which convert gaseous nitrogen to an organic form usable by the plant. The plant must provide a substantial amount of energy to its symbiont in exchange. In fact, the plant provides more energy to the bacterium than it costs to fix the nitrogen. One of the major unanswered questions is how energy is provided to the symbiont. This project directly tests a new hypothesis that organic acids containing nitrogen are involved in this exchange.